Kolmogorov Complexity and Its Applications

Kolmogorov complexity is a modern theory of randomness
and has many applications in computer science and
other fields. The investigator is enriching this theory
and its applications by doing research in two directions.

Analyzing the average-case complexity of an algorithm
is at the heart of practical algorithm analysis.
It has been demonstrated over the past decade that
Kolmogorov complexity is a powerful tool to help analyzing the
average-case complexity and the lower bounds of algorithms.
Examples are the average case analysis of Shellsort and Heapsort.
The PI plans to continue this work to systematically develop
the tool, the Incompressibility Method. This involves comparative
studies to understand why, how, and when
the incompressibility method
works. In order to demonstrate, and to uncover,
the power of this method, this method will be used to solve
other open questions. Samples of some open questions include:
improving Shellsort average-case lower bound analysis,
average height of balanced trees, and Stack sorting lower bound.

The modern information age and the post-genomic era raises a
fundamental question: Given two sequences (genomes or English
documents), how much information do they share? For example,
given two genomes, can we measure their evolutionary distance?
The goal of this second part of the proposal is to understand
this fundamental question and develop tools.
In the past, the PI and his coauthors have partially answered this
question by defining the concept of Information Distance.
Information Distance measures the absolute
thermodynamic energy required to convert one sequence to another.
However, it does not measure evolutionary distance because
genomic evolution allows long segment deletion/insertion, cheaply.
A new theory suitable for such evolutionary distance will be
developed. To demonstrate the feasibility of this research,
some preliminary theory has been proposed and successfully applied to
construct whole genome and chain letter phylogenies when no other
method applies. More recently, this theory has also been
applied to program plagiarism detection and language classification.